Many-Body Methods with Application to Atoms

The research focuses on the problem of electron correlations in scattering and photoionization of complex atoms. Methods will be developed for accurate calculations on systems requiring the inclusion of relativistic effects such as tungsten and platinum. Resonance and multiplet effects will be treated. Studies of processes involving simultaneous ionization and excitation in Li, Be and Na will be undertaken using both MBPT and the R-matrix method. Impact ionization involving double and triple ejection will also be treated. Finally, coupled cluster approaches using discrete basis sets will be used to calculate energy levels, oscillator strengths and polarizabilities in the rare gases and for accurate calculation of parity nonconserving transitions in Rb, Cs, Tl and Pb.